Symposium on RNA Biology: RNA-Protein Interaction on October 13-15, 1995 at Research Triangle Park, North Carolina

; R o o t E n t r y F K 6 C o m p O b j b W o r d D o c u m e n t O b j e c t P o o l ' 6 ' 6 9 : ; < = > ? @ A B F Microsoft Word 6.0 Document MSWordDoc Word.Document.6 ; ^ do foj oPj R v SQW K F ho > o o o ~ t 2j t u ~ u ~ t N 3 j j F V = u ; t, j j F V 6 j 6Rj >+ Bj+ v N ~o o F V o o F V o F 6Rj > +~ +>Bj ~ u ~ t > o u 9> ot tI ^ F V ~o o N 9502254 PRIVATE Agris RNA synthesis, chemistry, structure and function are central to the viability of all biological systems and thus, are important to agricultural, medical and environmental research. This research has led to biotechnological applications of RNA as both target and reagent. Even though the first RNA structure was resolved some twenty years ago, only now are we beginning to understand RNA interaction with proteins through combined use of x ray crystallography, NMR, biochemical, molecular biological and genetic approaches. New and exciting RNA structures have been discovered and are revealing interesting new functional modes of interaction with proteins. However, no meetings have focused exclusively on the topic of RNA protein interactions to create an environment of intellectual exchange and a forum to share data and techniques. Many different groups are using a variety of approaches to understand the plasticity of RNA and how RNA structure is recognized by proteins. Thus, a Symposium on RNA Protein Interactions would be timely. Seven major researchers (six from the USA, one fro m Europe) have already accepted invitations to speak at a Symposium on October 13 15, 1995 in the North Carolina Research Triangle. Funds amounting to almost half the estimated cost of the conference have already been obtained. This proposal requests NSF funding for stipends for one major speaker and three young investigators. The requested funds are approximately 10% of the estimated total budget. %%% RNA synthesis, chemistry, structure and function are central to the viability of all biological systems and thus, are important to agricultural, medical and environmental research. This research has led to biotechnological applications of RNA as both target and reagent. New and exciting RNA structures have been discovered and are revealing interesting new functional modes of interaction with proteins. However, no meetings have focused exclusively on the topic of RNA protein interactions to create an environment of intellectual exchange and a forum to share data and techniques. This proposal funds stipends for one major speaker and three young investigators. *** ; ; @ ....()()))()() Z : phoenix B L s A ; S u m m a r y I n f o r m a t i o n ( 8 Oh +' 0 $ H l D h R:\WWUSER\TEMPLATE\NORMAL.DOT jack cohen jack cohen @ A @ @ 5 @ Microsoft Word 6.0 2 e = e " " " " " " " L L L L L d n L h x | | | | | | | \ r T ( " | | | | | | " " | x | | | | " | " | 6 > " " " " | | 0 | 9502254 PRIVATE Agris RNA synthesis, chemistry, structure